Scholarship and Excellence in Secondary Science Education (SESSE)

Through a Phase 1 Noyce Teacher Scholarship Track, Long Island University Brooklyn (LIU-B) plays a key role in improving the quality and retention of science teachers in NYC schools that serve large numbers of poor and minority students. LIU-B School of Education (SOE) is well positioned to assist NYC schools in improving science teaching and learning, and it does so through the Scholarship and Excellence in Secondary Science Education (SESSE) program that recruits high-performing underrepresented science majors and prepares them to become high quality science teachers who persist in their teaching careers. A number of faculty from several STEM disciplines participate in the project. The SESSE program targets upper level undergraduate biology and biochemistry majors to become certified to teach in New York City middle and high schools. SESSE provides scholarships and supporting stipends to sixteen minority science students in two Cohorts of 8 each in years 1 and 2 of the project.